Application of DMSP Satellite Data to Antarctic Oceanographyand Meteorology

This project will develop computer software and techniques to extract data taken over the polar regions by the Defense Meteorological Satellite Program (DMSP) sensors. These sensors include imagers that operate in the visible/infra.red range, and profilers that operate in the microwave range. These data will extend the antarctic environmental data base currently produced by the NOAA series of polar orbiters and captured by ground stations at McMurdo and Palmer. The DMSP sensors have a greater resolution than the NOAA series sensors, and have specific advantages, one of which is that the DMSP Optical Line Scanner can use moonlight to provide visible spectrum images during the polar night. The first year will be devoted to developing software and techniques for processing the data; the second year will be devoted to defining, in conjunction with the antarctic meteorological community, applications of DMSP data to questions concerning atmospheric dynamics, ocean circulation, and ice dynamics in and around the antarctic continent.